CRCNS 2012 PI Meeting at Washington University in St. Louis

The PIs and Co-PIs of grants supported through the NSF-NIH-BMBF Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This eighth meeting of CRCNS investigators brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks, plenary lectures, and discussions. The meeting is scheduled for June 3-5, 2012 and is hosted by Washington University in Saint Louis.